Coordination Meeting on Observing Systems for Environmental Solutions

A workshop will be held to bring together noted scientists to provide recommendations on the synergy among scientific observing systems funded or proposed for funding by NSF, and the ability of that synergy, and those systems, to address grand environmental challenges identified by the National Research Council. The participants will explore the proposed and potential value of NSF nascent and current observing systems to address these challenges. Of critical importance will be the identification of gaps in knowledge that will remain or become more critical as observing systems are deployed, and how this may affect the role of non-observing system science. Of particular importance will be the identification of synergies among and within
observing systems and system requirements for inter-operability. The anticipated intellectual impact will be the identification of emergent frontiers, unrealized research opportunities, and unique infrastructure capacity that arise from the combined environmental research observing systems and networks. The workshop will have broad impacts by defining the potential of observing systems to generate solutions to environmental problems relevant to society. In addition, the resulting reports will contribute to the planning, funding, implementation, coordination, and use of the observing systems through formulating a set of recommendations for the AC-ERE, NSF, and the wider community.